Travel Support for IEEE INFOCOM 2001 Conference; Anchorage, Alaska; April 22-26, 2001

The IEEE INFOCOM Conference on Computer Communications will be held in
Anchorage, Alaska, during April 22-26, 2001. This preeminent technical conference is
the primary venue for presenting new research results in the area of computer
communications, and is widely attended by researchers and practitioners in the field.
Attending conferences such as INFOCOM is of paramount importance for the
development of graduate students, post-doctoral researchers, and faculty members.
Participants have the opportunity to present their work, attend panel and keynote
sessions, and interact with hundreds of others performing leading-edge research in the
field. This proposal requests funding to aid approximate twelve graduate students, post-docs,
and junior faculty in the United States in attending this premiere conference.